I/UCRC FRP: Dynamic Imaging of Cancer Stem Cell Proliferation Using Surface Enhanced Raman Scattering (SERS) Labels

This proposal seeks funding for the Center for Biophotonics Sensors and Systems (CBSS) located at the University of California, Davis (UC-D). Funding Requests for Fundamental Research are authorized by an NSF approved solicitation, NSF 11-570. The solicitation invites I/UCRCs to submit proposals for support of industry-defined fundamental research.

Tumor resistance to anti-cancer therapy is a major obstacle to further improving cancer patient survival. Accumulating experimental and clinical data suggest that cancer stem cells (CSCs), which comprise less than 1% of total tumor cells, are able to self-renew and are responsible for the aggressive phenotype of many human cancers. There is an unmet need in elucidating the unique features of cancer stem cells. Identification of the markers that best delineate this population of cells is essential to develop more effective cancer treatment. This proposed study will detect the development and evolution of these markers in CSC-enriched cancer cell populations to better identify cells responsible for tumor resistance to anti-cancer therapy and tumor metastasis and to understand cancer cell proliferation. This project proposes to demonstrate the application of novel cellular labels based on surface enhanced Raman scattering (SERS) for monitoring CSC development during cell division.

If successful, the proposed project will be able to trace the dynamic alterations of a CSC to address many unanswered questions about how these cells proliferate. This information will be important for future development of targeted therapies to inhibit cancer growth and ultimately enhance patient survival. The industry support of the I/UCRC and its active participation in this research project enhances the graduate educational experience by providing a pipeline for talented engineers and scientist to industry.. UC Davis' commitment to develop the academic potential of underrepresented groups in STEM fields will be further enhanced by offering industrial career options, informal mentorships and internships with its I/UCRC partners. The close interaction with the industry partner (BD Biosciences) will lead to the development of new biomedical technology of immediate relevance to the company. Application of this technology specifically to breast cancer stem cell research will have a major impact in the understanding of the molecular mechanisms of the disease, which will impact the discovery of new treatments.